Build Your Internet: An Exhibition to Foster Public Understanding and Participation

The Tech Museum of Innovation is producing a 3,000 square-foot permanent exhibition, complementary online acitivities, and a Design Challenge curriculum to engage visitors in the exploration of Internet techologies. The goals of the project are to enhance the technological literacy of middle school students, provide the general public with tools, experience, and confidence to participate in shaping the future of the internet, and advance the informal science education community through applied research in networked exhibit technology. Two distinct features of the exhibit are: 1) The Smart Museum, a computer network linking gallery and online expereinces, and 2) "dynamic content," a set of strategies for rapid exhibit updates that will mirror the changing Internet for the life of the exhibition. The Design Challenge curriculum will be used at the museum, in outreach to classrooms and community centers, and in training sessions for science educators. The summative research will be shared with the science education community via The Tech's web site as well as professional seminars, publications and conferences.